Convective Heat Transfer in the Grinding Process: Experimental Aspects

This research investigates the cooling ability of grinding fluids for both conventional and creep feed grinding conditions. The objective is to analyze the convective heat transfer occurring at the workpiece surface, and ultimately to predict the fraction of the total grinding energy which remains in the workpiece, and the workpiece temperature. This experimental effort will address four measurements: temperatures within the workpiece and at its surface, the change in temperature of the grinding fluid, the grinding forces, and the grinding wheel topography. This research, combined with a parallel modeling effort in another grant will permit a basic understanding of the thermal aspects of grinding. Grinding accounts for about 20 percent of the machining expenditures in the United States, and is consequently of great industrial importance. Energy generated during grinding may cause thermal damage the workpiece and wheel. To avoid this, grinding fluids are often used, but their effects are not well understood. The overall objective of the proposal is to investigate the cooling ability of grinding fluids for both conventional and creep feed grinding conditions so that a predictive model can be developed.